Digital Government: An Ontology for Geospatial Knowledge

EIA-9876604
Findler, Nicholas V.
Arizona State University

This planning propoal will develop the preliminary work and cement the partnerships necessary to develop a fully-fleshed proposal to devise an ontology for geographic knowledge. The proposed Federal partners would be the US Coast Guard and the National Oceanic and Atmospheric Administration. The ontology proposed would encode entities such as shorelines, tide tables, and other domain objects.